2004 Yamabe Memorial Symposium, University of Minnesota

Abstract

Award: DMS-0408283
Principal Investigator: Jiaping Wang, Robert D. Gulliver,
Naichung Leung, Tian-Jun Li

The Yamabe Memorial Symposium to be held at the University of
Minnesota in September 2004 will be devoted to discussions of
recent advances in differential geometry, representing the
variety and depth associated to the work of the late Hidehiko
Yamabe.

Graduate students and junior researchers are particularly
encouraged to apply for travel and per diem support. Information
on participant support and conference planning is available
through the conference Web site,
http://www.math.umn.edu/~gulliver/confs/yamabe/.